The University of Florida Conference on Theoretical Immunology (UFCTI-2002), May 23-25, 2002, Gainesville, FL

Pilyugin
0124610
The investigator and his colleagues organize a conference on
theoretical immunology. The field of theoretical immunology has
become a prominent direction in biomathematics and it concerns
mathematical modeling of the biocomplexity in the immune system,
and more specifically the generation of immune responses to
infections, generation and maintenance of immune memory,
understanding the mechanisms that govern persistent infections,
designing optimal strategies for antibiotic treatment of
infectious diseases, and vaccine development. The main goals of
this conference are to advance the interaction between
theoretical and experimental directions of immunological research
and to facilitate a better communication between science and
medicine. The conference focuses on modern approaches to
mathematical modeling of immune processes using differential
equations and dynamical systems, game theory, mathematical
statistics, stochastic processes and computer simulations, as
well as mathematical algorithms for data mining and data fitting.
The conference features lectures by prominent scientists on
fundamental results in the field as well as reports on work in
progress. A special session is devoted to the discussion of new
directions and most significant problems of theoretical
immunology in the near future.
The immune system is our primary defense against viruses and
infections. Theoretical immunology is a relatively young field of
science that deals with theoretical modeling of interactions
between immune system and invading parasites. Mathematical and
computer models are used to unify our understanding of the
extremely complex functioning of the immune system. Such
theoretical models allow scientists to sort through the growing
wealth of experimental and clinical data and extract
fundamentally important features of immunity, design new
experiments, and optimize the performance of drugs and vaccines.
The meeting aims to bridge the gap between theoretical and
experimental biology and medicine and advance the theory of
immune processes to address the current needs of medicine and
biotechnology. The conference has an educational impact by
exposing younger researchers and graduate students to the present
challenges in immunology and facilitating their future scientific
careers.